Special Project: AMP: 1996 National Conference of Black Physics Students

HRD-9633078 McIntyre The 1997 NCBPS meeting is scheduled to b held February of 1997 with the Massachusetts Institute of Technology as the tentative host institution. The 1996 Conference will be the tenth consecutive meeting of NCBPS. The objective of the NCBPS meeting is to assist and encourage Black students who have shown interest and ability in physics to enter and complete Ph.D. programs, and to initiate research, teaching, or technical careers commensurate with their educational achievement in physics. NCBPS originated with a group of Black graduate students at the Massachusetts Institute of Technology. The conferences have organized and implemented by students with faculty and staff assistance at the various host institutions throughout the country. Information is presented through the following mechanisms (1) lectures by distinguished scientists and engineers, (2) technical presentations by Black graduate and undergraduate students, (3) workshops on the graduate admission process, (4) seminars on financial support to students for science education at the university level, (5) forums on successfully completing a graduate programs in physics, and (6) career opportunities at all degree levels. The primary audience for the Conference consists of undergraduate students who are majoring in physics and/or who have expressed a sincere interest in physics. A principal goal of the Conference is to permit these students, ho are in the process of making career decisions, the opportunity to discuss with graduate students and scientists their concerns regarding a scientific career and to seek recommendations and advice about educational paths.